NSF Young Investigator

9457212 Pollard The principal investigator will investigate electrical waveform propagation during action potential depolarization and repolarization using computer models of the heart. High performance computing will be employed to study propagation across the heart wall, propagation between myocardium and the conduction system, and the onset of re-entry.